The Role of the Cia5 Gene in the Carbon Concentrating Mechanism in Chlamydomonas Reinhardtii

The carbon concentrating mechanism (CCM) plays a major role in the earth's
photosynthetic productivity and its capacity to cycle carbon. The CCM is
essential for photosynthesis at atmospheric levels of CO2 in Chlamydomonas
and most other eukaryotic and prokaryotic algae. Knowledge gained
regarding the CCM in C. reinhardtii through this three-year project,
coupled with information from other laboratories, should allow a more
complete understanding of how algal cells are able to survive and flourish
in their CO2-limited, aqueous environment. The primary goal of this
research project is to elucidate components and mechanisms of regulation of
the CCM in Chlamydomonas reinhardtii. The focus of the project is the
complete characterization of the Cia5 gene and its role as a master
regulator of the cell's response to changes in environmental CO2 and HCO3
concentrations. Based on the weight of present evidence, it appears the
Cia5 gene encodes a transcription factor that is part of one or more signal
transduction cascades that allow, or reverse, formation of a functional
CCM. Experiments to fully characterize the Cia5 gene are outlined along
with studies of the CIA5 protein, its subcellular location,
post-translational modification(s), DNA binding specificities and other
features required for its function in controlling assembly of the CCM. A
model is proposed in which the CIA5 protein could act either as an inducer
or repressor of transcription of genes whose expression is dramatically
increased during a shift of cells from high to low CO2 levels. Experiments
are outlined that will resolve the uncertainty of whether CIA5 acts as an
inducer or repressor of gene expression. In the long term, an increased
understanding of the CCM has the potential for practical application in
agriculture. For example, certain crop plants have been demonstrated to
produce higher yields under elevated levels of CO2. If appropriate
portions of the CCM can be transferred to those crops, their resultant
ability to increase internal CO2 concentrations could lead to substantially
improved crop yields.